Symposium on Structures and Structural Dynamics

This project is to support a Symposium on "Recent Trends in Aeroelasticity, Structures, and Structural Dynamics" to be held on February 6-7, 1986 at the University of Florida. The Proceedings of the Symposium will include papers on the assessment of the present state-of-the-art and to indicate the trends for future research efforts. The report will serve as a planning document and will be widely distributed throughout the academic community.